System for In Situ Rehabilitation of Pipelines

This project will assess the technical feasibility of rehabilitating an in-site pipeline by extruding a molten thermoplastic tube into the existing pipe and successfully heating and cooling the tube to form an attached liner, thus sealing all leaks.